Mathematical Sciences: Problems for Two Classes of Evolutionary Partial Differential Equations

This project seeks to derive properties of solutions of two classes of partial differential equations that arise in models for the time-dependent behavior of viscoelastic model materials. The first part deals with linear integrodifferential equations that describe materials with long-term memory and their solutions. A goal is to give a detailed description of the smoothness of solutions depending on the data. The methods to be employed involve various transformation and transfer techniques that allow use of known properties of simpler, related problems. As a result, a better understanding of theoretical models and improved insight into the behavior of computational methods will is expected. Work will also be done investigating a class of nonlinear partial differential equations describing model materials with internal friction. The goal is to construct generalized solutions that obey the basic physical principle that matter cannot penetrate itself and to analyze their structure. Techniques that have been successful for other classes of nonlinear partial differential equations, such as a priori estimates, are to be employed. As a result, improved understanding of certain classes of models in continuum mechanics and more generally of solutions of partial differential equations that are to describe one-to-one mappings should result.